Fourteenth International Conference on Banach Algebras

The Fourteenth International Conference on Banach Algebras will
be held at Pomona College in Claremont, California, from July 25
through August 7, 1999. This series of conferences emphasizes both
Banach algebras and their connections with other areas of analysis.
The title of this conference is "Banach Algebras and Operators on
Banach Spaces". The formal conference program will involve about
sixty talks on the general theory of Banach algebras, on concrete
Banach algebras, and on related areas of analysis. Some areas
that will be emphasized in the talks include automatic continuity,
amenability and Banach homology, structure of Banach algebras,
spectral theories and operator theory, group algebras and other
convolution algebras, and complex analytic methods.

One of the great accomplishments of modern mathematics is abstraction.
Much like the way elementary algebra generalizes arithmetic, abstraction
gives mathematicians the power to solve not only individual problems,
but entire classes of problems. One of the most important twentieth-
century examples is the field called functional analysis. Functional
analysis uses new abstract techniques to treat problems that had been
studied for more than two hundred years by what we now call classical
analysis, which is the collection of methods that grew out of the calculus.
Functional analysis, instead of concentrating on individual functions,
studies spaces of functions and abstractions of such spaces. Not only
could new problems and previously intractable old problems be solved by
combining the new and old methods, but the new structures of functional
analysis also provided a new language which was needed to express many of
the results of modern physics and, later, of other areas of science and
of economics. The spaces considered by functional analysis all have some
sort of operation of addition, but many of the most important spaces have
other operations as well. In particular, Banach algebras and related
areas involve the very large and important collection of problems and
structures which have some sort of multiplication as well as the usual
addition. By the 1960s, Banach algebras, the subject of the conference,
had become a recognized field of mathematics. Since 1974 the regular
international conferences on Banach algebras have become an important
way for researchers worldwide to keep abreast of the field, to initiate
and continue research collaborations, and to exchange ideas with researchers
in related areas.